Silk Symposium; Charlottesville, VA; June 15-17, 1998

9806699 Kaplan An international symposium on silk will be held June 15-17, 1998, at the University of Virginia. The symposium, cofunded by the Division of Materials Research and the Division of Molecular and Cellular Biosciences, will focus on biophysical, bioengineering and materials science aspects of silk-based polymers. The symposium will include talks on the study of silk genetics, self- assembly of silk protein polymers, phase transitions and liquid crystalline behavior of these polymers, evolutionary relationships between silk-producing organisms, shear processing of the polymers leading to fiber formation in natural and artificial systems, new analytical methods used to elucidate structures and functions of silks, the analysis of mechanical properties of silk materials, and biomedical and material science applications for engineered silk polymers. The studies presented will deal with aspects of the genetics of highly repetitive genes and their divergence into multigene families, the role of crystalline size and orientation in fibers and how this influences mechanical properties, physiological mechanisms involved in converting high concentrations of water soluble high molecular weight protein polymers into aqueous insoluble materials, and the formation and function of mesophases during the processing of these proteins. %%% The study of silk polymers represents an important new paradigm for materials science. This new paradigm, termed biomimetics, suggests that new insights into the design, synthesis and assembly of materials can be gained through the understanding of related biological processes. This growing interface between biology and materials science leads to an interdisciplinary approach in order to adequately address all aspects of the field. The talks planned for the symposium illustrate this interdisciplinary approach, with sessions on biology, mechanical properties, composition and characterization methods, structural features, molecula r modeling, silk genes and protein expression, silk transformations and processing, and applications for silks. The interchange between materials scientists, molecular modelers, biologists, chemists and physicists at the symposium will provide new directions in the research and a new level of understanding of silk-based polymers. A total of about forty presentations will be given at he symposium and the presentations will be published in a new book on silk. ***